CT-ISG: Cryptographic Foundations for Next-Generation Security Applications

CT-ISG: Cryptographic Foundations for Next-Generation Security
Applications

Boaz Barak

This project tackles some of the foundational challenges to the
advent of the networked society and pervasive databases pose to
cryptography. Specifically, it studies the existence of
cryptographic protocols that allow mutually distrusting parties to
achieve a common goal with a minimal sacrifice in privacy. This
includes as a special case protocols for electronic elections, electronic
auctions, privacy-preserving data mining and many more applications.

A central issue in such protocols is the effect on security of executing
multiples instances of one or several protocols over a network.
It is known that in some cases such interaction can lead to subtle
but fatal security flaws, and so constructing protocols whose security
is robust with respect to such interactions
is a central question in this cryptography. This project uses
recent and new ideas and techniques to attack this problem.

More concretely, the research involves
studying the tradeoff between trust and interaction.
There are known protocols with robust security assuming the existence
of completely trusted third parties. This project focuses on reducing the
assumption of a trusted party, and aims to discover to what extent
this can be done without compromising security. The goal is to get both
positive results- protocols obtaining robust security under weaker trust
assumptions than was previously known, and negative results- showing
that certain security goals are impossible to achieve without some
trust assumptions. This will allow the users of secure applications
to know what is and is not achievable in terms of trust and security.

This project also tackles the main sources of inefficiency in current
constructions of robustly secure protocol, in order to find out to what extent
the current efficiency bottlenecks in such constructions are inherent.